Informal Analysis Seminar

This award provides funding for US participation for four installments of the Informal Analysis Seminar that will be held Kent State University in Fall 2019, Spring 2020, Fall 2020, and Spring 2021.

Each of these meetings will feature plenary lectures that highlight connections between different topics in Analysis, Probability, Convex Geometry, and Partial Differential Equations. There will also be a poster session for all researchers to showcase their work, and a special panel on open questions for graduate students and early career researchers. This award gives early career researchers, members of underrepresented groups, and researchers not funded by NSF, an opportunity to attend and participate in this conference. The organizing committee will strive to make this funding opportunity known to target groups through a number of different activities. More information will be made available at: http://www.math.kent.edu/~zvavitch/informal/Informal_Analysis_Seminar/Welcome.html